SGER: Seismic reflection profiling of ocean thermohaline structure in the North Atlantic Ocean

This project is a one-year study to begin to establish mulit-channel seismic profiling as a tool for physical oceanography. The PI will investigate what oceanographic features are reflective at low frequencies and to acquire the first joint physical oceanographic and seismic reflection data set. Existing datasets in the North Atlantic will also be used to determine whether water column reflections exist in those data sets.
Broader Impacts: This study will develop a new approach for imaging thermohaline structure in the ocean by bringing ideas, tools and people from a different discipline into physical oceanography. The study will also contribute to the education of students and a postdoc including a woman and a minority.